MRI: The Digital Eye--A Visual Measurement and Processing Facility

This project, enabling next generation research projects in automatic sensing and modeling, aims at acquiring a massive image capture and processing facility. The infrastructure includes specialized digital video cameras and projectors, a high resolution motions apparatus, a three dimensional scanner, a lighting grid, a robot arm, and a video compute cluster. The components form a massive "Digital Eye" that will enable capturing the appearance, shape, motion, and behavior of real objects and scenes at previously unattainable resolutions and frame rates. Interdisciplinary ties and collaborations in Zoology, Mathematics, Statistics, Urban Design and Planning, and Architecture will benefit from the specific projects and applications to be supported by the infrastructure. These projects include:
High Fidelity Modeling of Human Shape and Motion: Digital Humans
Insects in Flight: Biological Motion Analysis, Modeling Insect Flight
Analysis of Physical Processes: Physics Capture
Lightfield Analysis: Plenoptic Imaging and Modeling Research,
Plenoptic Function Capture and Simulating Compound Eyes
3D Object Recognition from Range Data
Urban Simulation and Visualization.
Enabling hand-on experience for students in courses on digital sensing technologies and animation production, the project promotes teaching, training and learning by providing a state-of-the-art facility.